Floristic Inventory of the Jalca Formations of Northern Peru

The Andean Cordillera extends the length of western South America, and the combination of high elevations and latitudinal range give rise to several types of specialized alpine environments. Jalco formations are essentially confiend to habitats between 3000 and 4500 meters and are usually considered intermediate in moisture regimes. This proposal seeks funding to conduct a three-year specimen-based floristic inventory for the jalca formations of northern Peru. Collecting will consist of appropriate vouchers of vascular plants, ferns and fern allies, bryophytes, lichens and fungi. The project will yield a robust specimen database documenting the biodiversity of the jalca formations in northern Peru, and produce an annotated checklist detailing the flora of the formations. Collaroborators include Peruvian researchers and students; vouchers will be distributed in the host country and other institutions.